SBIR Phase I: Novel Catalyzed Nanotubular Structures for Advanced Proton Exchange Membrane (PEM) Fuel Cells

This Small Business Innovation Research (SBIR) Phase I project will utilize a novel carbon nanotube material to develop an innovative electrode structure for a proton exchange membrane fuel cell (PEMFC). The innovation in this work targets both performance and cost issues of PEM fuel cells by investigating novel catalyst support structures. This effort capitalizes on the technical expertise of research groups at Physical Sciences Inc. (PSI) and the Martin Group at University of Florida (UF). The Martin Group, in the role of a subcontractor, will be responsible for nanotube synthesis. Catalyzing the nanotubes is a task that will be shared by both groups; each bringing unique expertise to this project. The catalyzed membranes will then be integrated into a membrane electrode assembly (MEA) by PSI and tested for single cell performance. The development of these support structures will also pave the way to a new single component MEA system, eliminating the expensive solid polymer electrolyte currently employed.

Successful development of the technology will substantially improve the performance and cost effectiveness of PEM fuel cells for vehicular applications.